CISE Research Infrastructure: High Performance Graphics and Imaging

9502631 Hanrahan This award provides support for a high performance giga-flop compute server, a high performance 3D graphics server, a high performance image/video/data server, and a high bandwidth network to couple these machines together. The requested equipment will contribute to the computational infrastructure of a new computer graphics laboratory. Many national challenges such as health care, education, manufacturing, and crisis management, require graphics and imaging technologies. The investigators will be working in the areas of graphics systems and algorithms, involving research in efficient rendering algorithms, high-performance graphics architectures, and coupling compression and graphics; in scientific visualization with research in volume rendering for scientific and medical applications; in vision and graphics with research in the digitization of 3D models; and in imaging and video with a focus on the manipulation of image and video databases.